Conference Support for GECCO

EIA-0314012
James Foster
University of Idaho

Title: Conference Support for GECCO

Project Summary

This proposal requests funds to support and encourage student participation in the Genetic and
Evolutionary Computation Conference (GECCO), to be held 12-16 July 2003 in Chicago,
Illinois. Our overall objectives are:
1. Encourage and support student participation at GECCO 2003, targeting
underrepresented groups and including both undergraduates and graduates
2. Encourage undergraduates to pursue graduate research in genetic and evolutionary
computation
3. Encourage students to pursue academic or industrial careers that research or use genetic
and evolutionary computation
This funding opportunity will be advertised with all conference advertising. This will include
physical mailings, email broadcasts, listsere
Intellectual merit: this proposal will enhance development and dissemination of research in
evolutionary computation by helping students attend a major international meeting to present
their work, attend tutorials and other events, and establish collaborations. Our primary target for
student support is students from underrepresented groups that are presenting peer reviewed
work-specifically, those who are already making a scientific contribution. Evolutionary
computation is still considered an experimental and innovative approach, so this is responsive to
the mission of NSF/EIA. It is also biologically inspired, and events at GECCO 2003, particularly
workshop, tutorials, and one of the technical tracks, will specifically emphasize applications to
bioinformatics problems, so this is responsive to the mission of NSF/DBI as well.
Broader impact: this proposal funds student participation at a major international meeting, with
an emphasis on underrepresented groups and undergraduates. We will disburse the funds from
this grant to students in the form of registration fees, travel, and housing awards. All funds from
this grant will go to students. Students will be selected for awards by the general chair, the PI of
this proposal. I will give precedence to students who: are presenting a paper that will be
published in the conference proceedings; are self-identified as being from underrepresented
groups; are participating in workshops; are undergraduates